A Modular Integrated Laboratory for Introductory Biology

This project proposes to alter the philosophy and approach to laboratory training in biology at the introductory level. Changes in the laboratory component in the first semester of a two-semester sequence will allow students to participate in a small number of non-traditional, investigative laboratories in evolutionary, environmental and behavioral biology. Each module directly relates to and prepares science majors for modern research-oriented upper-division courses. The intent of these modules is to (1) expose students to basic questions in biology, (2) give direct experience with scientific methods including statistical analysis and use of modern research technologies, and (3) increase expertise in evaluating primary, as well as secondary publications in science. During the final week of each module students will interpret data and draw conclusions and in selected modules will design their own original investigations based on previous experimentation, observation and data collection. This project more clearly parallels modern research than the traditional weekly menu- driven laboratory. The time/space flexibilities and increased student/faculty/staff contact will accommodate individualized learning and will address the needs of a student cohort with disparate secondary school educations and socioeconomic backgrounds.